EXP-SA: Nanofibril Films for Dual-Sensing Explosives Detection

TITLE: EXP-SA: Nanofibril Films for Dual-Sensing Explosives Detection
PI name: Ling Zang
Institution: Southern Illinois University at Carbondale

Proposal Number: 0730667

This research will build upon unique molecular assembly techniques pioneered in the PIs' laboratories. By controlling the nanoscale morphology of fluorescent materials, they have demonstrated efficient vapor phase explosives detection that is independent of film thickness. By modifying the molecular structure and improving fabrication of the assembled arylene-ethynylene macrocycles (AREs), they can optimize the fluorescent quenching-based sensory response. An alternative transduction mechanism is also proposed which relies on measuring conductivity changes in the materials.